Career: Multichannel Deconvolution Techniques in Multiuser Wireless Communication Systems

Future wireless systems based on Code Division Multiple Access (CDMA) schemes will impose stringent interference rejection requirements at the receiver's front end. The development of appropriate signal processing algorithms to suppress multiuser interference is an essential factor in the success of third generation wireless networks. The objective of research is to explore the connections between interference rejection problems appearing in wireless, multiuser communications and classical signal processing concepts like array processing and multichannel deconvolution. By developing those links and establishing a DSP framework for multiuser communication problems, we will facilitate the application of a large body of DSP algorithms and research results to those problems. Similarly, the integration of communication and DSP links in the Electrical Engineering curriculum provides the students with a global understanding of DSP aspects of wireless communication systems. The first research goal is to develop appropriate discrete-time models for multiuser CDMA systems with chip rate sampling, and identify the analogies with well established array processing models. The second objective is to develop simple, adaptive, linear receivers based on these models, which are self-recovering, yet attain a performance comparable to that of the trained MMSE receiver. These blind solutions borrow ideas from standard array processing techniques like Capon and MVDR beamforming. The educational goal of this work is to promote linear deconvolution ideas as a significant and unifying component in the systems thread of the EE curriculum. This component is introduced in various courses through laboratory and design work. The approach is based on developing an innovative lab infrastructure which allows remote experimentation and capitalizes upon the campus networking resources. Additionally, a focus on ``signal processing for communications'' is being developed in the graduate and under graduate curriculum through course development and restructuring.